Communicating Ocean Sciences Informal Education Network: Scientists and Educators Working Together to Promote Ocean Literacy

This proposal is from a coalition of cross disciplinary investigators at the Lawrence Hall of Science/Center for Ocean Sciences Education Excellence at the University of California, Berkeley. The investigators intend to create a communications network for ocean sciences in an informal setting to improve the communication of ocean science concepts. The network would foster relationships between ocean and climate scientists in institutions of higher education and build the capacity for educators to communicate with the public about science. The network is intended to impact visitors to informal science centers, docents, educators, and scientists. It would provide experiences with new scientific knowledge about the oceans and promote climate literacy for the landlocked states of the country where ocean sciences are not usual topics for educational programs.

The network includes: 1. Long Beach Aquarium of the Pacific and University of Southern California; 2. Hatfield Marine Science Center and Oregon Sea Grant at Oregon State University; 3. Virginia Aquarium and Science Center and the Minorities in Marine Science Program, Hampton University; 4. Liberty Science Center and the Institute for Marine Coastal Sciences and Rutgers University; 5. Lawrence Hall of Science and Earth & Planetary Science and Integrative Biology, University of California, Berkeley; 6. Birch Aquarium at Scripps and Scripps Institution of Oceanography, University of California, San Diego; and 7. Purdue University.

The goal of the project is to help a new generation of scientists and informal educators to better understand and more effectively communicate with the public the essential principles and fundamental concepts of Ocean Literacy, Climate Literacy, and Earth Science Literacy. The content is integral to understanding climate science and the science of climate change such as ocean circulation, causes of sea level rise, the influence of the ocean on weather and climate, the role of the ocean in Earth's energy, water and carbon systems, and the need for continued exploration of the ocean system.